RUI: Acquisition of an FTIR Spectrometer and Sampling Accessories for Faculty-Student Collaborative Research in Chemistry

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Wisconsin in Eau Claire will acquire a Fourier-transform infrared (FTIR) spectrometer and sampling accessories. This instrument will support research in a number of areas, including a) fundamental vibrational spectroscopy to determine molecular structures; b) investigations of protein structure, dynamics and interactions with surfaces; and c) inorganic synthesis, aimed at modeling enzyme functions, as well as developing catalysts for organic reactions and olefin polymerization processes.

The general effectiveness of Fourier transform spectroscopic techniques in academic and industrial research has been firmly established. Many advanced spectroscopic courses now routinely include the teaching of FT spectroscopy. These studies will have an impact in areas such as surface science, catalysis, materials science and biochemistry.